Measurement and Interpretation of Crustal Deformation in an Active Fault Zone

The proposers will use a unique collection of crustal deformation observations to create an improved picture of fault- zone kinematics, and thus better understand fault-zone mechanics. With the vast increase in such data expected from GPS measurements, it makes sense to find out now, using existing data, what science we can get from them and also the best ways of collecting, combining, and interpreting them. They will mostly focus on the San Jacinto fault, in southern California-a well-instrumented area that is in the later part of its interseismic interval, with a moderate-to-large earthquake relatively likely.